Research in Statistical Physics

0138697
Dorfman

The proposed research will be devoted to further studies on the foundation
of the theory of irreversible processes in fluid systems. Such processes
include viscous and thermal flows as well as diffusive motion, chemical
reactions, in both classical and quantum systems. Recent work by the PI
and co-workers has shown that for most systems of interest, there is an
underlying chaotic dynamics which can be viewed as the source of the
irreversibility. The sensitivity of the motion of a chaotic system of
particles to the precise values of the initial conditions of the particles
reflects itself as an apparent randomness in the dynamics of the system.
Current research is devoted to a study of entropy production and related
irreversible phenomena in classically chaotic systems, as well as to the
quantum mechanical versions of the systems and their processes. This
latter direction is stimulated in part by recent work by many authors on
the quantum behavior of classically chaotic systems which can be
fruitfully applied to a study of irreversibility in quantum systems.
Finally, work will be carried out to determine the analogous
properties of non-chaotic systems, or of mixed chaotic and non-chaotic
systems, with transport to study the modifications of the theory needed to
treat such systems, as well.